The Computing Community Consortium II

The Computing Community Consortium (CCC) is a catalyst and enabler for the computing research community. Its various activities strive to unite the community to contribute to shaping the future of the field; provide leadership for the community, facilitating revolutionary, high-impact research; encourage the alignment of computing research with pressing national priorities and national challenges (many of which cross disciplines); give voice to the community, communicating to a broad audience the myriad ways in which advances in computing will create a brighter future; and grow new leaders for the field as a whole. The CCC operates under a Cooperative Agreement between the National Science Foundation and the Computing Research Association (CRA), a membership organization of over 200 computing research entities in academia, industry, and government.

During the founding years of its existence, the activities of the CCC had a significant impact on the status, direction, and prospects of the computing research community, catalyzing new Federal initiatives in robotics and big data to name a few. Opportunities during this second phase of the CCC are every bit as great. The CCC is an investment that promises to pay off in important ways for the field and for the nation.